Stabilization of Enzymes for Bioreactors

This proposal seeks to develop new stabilization techniques for immobilized enzymes used in bioreactors. These techniques, which have been demonstrated to significantly stabilize an enzyme to storage at elevated temperatures, will be further developed and applied to stabilization of functioning immobilized enzymes as used in bioreactors. The rationale is to provide an environment for optimal stability surrounding the enzyme, then to bind it together by copolymerization to obtain a very large molecular weight but soluble enzyme derivative. The crosslinked enzyme will then be immobilized and tested for stability. The enzyme to be stabilized in the above manner during the Phase I project is beta-galactosidase. This enzyme is used in bioreactors to hydrolyze lactose in milk or whey to make dairy products usable by people with lactose intolerance, or to make a waste product of the cheese industry into a useful product.